Parity Violating Electron Scattering at Jefferson Lab

0072283
Johnston
Understanding the structure of the nucleon at the quark level is of
fundamental importance in particle and nuclear physics. An observable
identified as being directly sensitive to quark degrees of freedom is
the cross section difference between the elastic scattering of electrons
with polarizations parallel and antiparallel to the incident electron
momentum from unpolarized protons. This parity violating asymmetry
results from the interference between the process in which an incident
electron exchanges a photon and the one in which it exchanges a neutral
weak boson. Specifically, parity violating elastic electron proton
scattering allows determination of the nucleon strange charge and
magnetic form factors, which describe the contributions from strange
quarks to the nucleon, along with their momentum transfer dependence.
If parity violating electron nucleon scattering experiments are extended
beyond the elastic channel into particular inelastic channels,
additional information about the quark currents inside the nucleon can
clearly be obtained. Understanding the Delta resonance, the first
excited nucleon state, has always been considered an important test of
nucleon structure models. The parity violating asymmetry in
electroproduction of this resonance can isolate the isovector
contributions to the quark currents. The Delta resonance can also be
produced in electron scattering via the exchange of the neutral weak
boson. Thus, weak transition form factors also contribute to the
N-to-Delta transition.
Included in the research efforts of the Louisiana Tech Center for
Applied Physics Studies (CAPS) is the study of parity violating electron
scattering in both elastic and inelastic reactions. CAPS has
significant involvement in the G0 experiment at Jefferson Lab (E00-006),
which will investigate the elastic channel, and are spokespersons for
experiment E97-104, ``Measurement of the Parity Violating Asymmetry in
the N-to-Delta transition.''